Presidential Young Investigator Award

This award provides funds for a PYI award to an outstanding young scientist interested in the development of new bioanalytic techniques. His planned activities include further development of automated DNA and protein sequencing. Dr. Smith's previous work was central to the development of the first generation of automated DNA sequencers. The development of new instruments and associated techniques intended specifically for the chemical and physical analysis of molecules of biological interest has played a key role in the remarkable success of modern genetics and biochemistry. Continued progress in these development efforts, with the aim of further automation and increased sensitivity should have a significant effect on our understanding of the control of gene expression, of the adaptation and evolution of living organisms, and of the biochemistry that is basic to the biotechnology industry.